Education for the Analytical Sciences - Year 2000 and Beyond

Chemistry (12) This project promotes activities and ideas originating from efforts in the analytical sciences funded by the Division of Undergraduate Education. The report, "Curricular Developments in the Analytical Sciences," issued in 1997, recommends changes in the undergraduate analytical sciences curriculum, including moving to a strong emphasis on problem-based learning. Analytical science covers not only analytical chemistry but also its applications in many disciplines ranging from biotechnology to microelectronics. This project facilitates dissemination of the results of these new curricular efforts through symposia, short courses, and workshops at professional meetings such as the Pittsburgh Conference on Analytical Chemistry and Applied Spectroscopy, the Federation of Analytical Chemistry and Applied Spectroscopy Societies, the Eastern Analytical Symposium, and national and regional meetings of the American Chemical Society.